Weak Localization and Magnetic Scattering in Dilute Magnetic Alloys

In this renewal proposal they will investigate the properties of magnetic impurities in metallic hosts for special systems, such as in ultra thin films and for (nearly) insulated atoms and clustors. Furthermore they wish to investigate the suppression of paramagnons at the interface of palladium with a normal metal (copper, magnesium), and to explore the connections between the spin-orbit scattering and the magnetic state of d-electrons in iron, cobalt and nickel. The measurements of the magnetic scattering rate shall be extended into the sub-mK temperature range. The main tool of investigation will be weak localization. In addition they want to extend the investigtion to higher concentrations of magnetic impurities which are beyond the application regime of weak localization. They plan to investigate the non-spin flip scattering of magnetic impurities by their scatteirng cross section in the normal conductance. They also want to use ultra-low resistance tunneling juctions to investigate basic questions, for example the range of the dynamic Coulomb interaction in disordered two dimensional electron systems, the RKKY interaction and others.